Regularity for Partial Differential Equations

Proposal DMS-0401261
PI: Lihe Wang (University of Iowa)
Title: Regularity for Partial Differential Equations

ABSTRACT

This proposal is directed to the study of regularity theory of elliptic,
parabolic partial differential equations and the study of the regularity
properties of their level surfaces. Degenerate equations arising from
geometry, fluid dynamics and several complex variables are also proposed.
Equations with stochastic media are connected with properties of the
obstacle problems. New methods and new understandings to these problems
are introduced.

The PI is working on problems from pure mathematics and on issues from liquid
crystals and from geological underwater problems. The proposed research will be
important for a wide interdisciplinary subjects. The PI is actively involved in the
training and recruiting of post-doctors and graduate students. At the Mathematics
Department of the University of Iowa, there is a student body about 100 graduate
students from around the country and around the globe.